Collaborative Research: RUI: Chemical Equilibria Involving Iron and Hydrogen in Metapelites From Western Maine

9909587
Dyar
The primary goal of this research is to evaluate the chemical equilibria
involving ferrous and ferric iron and hydrogen in metapelitic rocks from
western Maine and related rocks at Black Mountain, New Hampshire. We will
study samples from graphite, magnetite, and hematite-bearing rocks at three
different metamorphic grades: garnet, lower sillimanite, and staurolite
zone. This will permit the determination of: (1) in situ partition
coefficients for Fe3+ and Fe2+ among all the Fe-bearing phases and for H
among hydrous phases; (2) the temperature and fO2 dependence of
Fe3+/Fetotal and effects of Fe3+ substitution on other cation substitutions
plus their implications for geothermometry; and (3) the cation
substitutions that charge balance variations of H and Fe3+. We will also
characterize and seek to understand Fe3+/Fetotal zoning within individual
mineral grains as well as variation of Fe3+/Fetotal among grains of the
same mineral in the same rock; ultimately, we will assess the effects of
assemblage on Fe3+/Fetotal in the constituent mineral phases present.
These measurements will be made on standard 1" round petrographic thin
sections using beam sizes of less than 10 x 15 micrometers and the
relatively rapid, non-destructive techniques of synchrotron microXANES
spectroscopy (SmX) for Fe3+/Fetotal, ion microprobe (SIMS) for H, and the
electron microprobe (EPMA) for other major elements. With our analytical
results in hand, we can begin to address the competing effects of
assemblage and crystal chemistry on the incorporation of Fe2+ and Fe3+ in
metapelite minerals. We also hope to effectively and quickly demonstrate
the potential importance of SmX as a petrologic tool.